Conference: Keystone Symposia meeting on Evolutionary Developmental Biology; Tahoe City, CA

The purpose of the Keystone Symposia meeting on Evolutionary Developmental Biology is to gather the leading researchers across the discipline to share recent progress on understanding the genetic and developmental basis of the evolution of plant and animal diversity, and to stimulate research in new, emerging, and interdisciplinary approaches to current challenges in evolutionary developmental biology. The prospective speakers include the most notable contributors to the field as well as emerging new investigators who, together, constitute an exceptionally broad representation of this highly interdisciplinary research field. Research in the field of evolutionary developmental biology advances knowledge by using a cross-disciplinary approach to investigate the molecular and genetic mechanisms underlying the evolution and diversification of multicellular organisms. This meeting will provide a unique forum for researchers with different perspectives, and from different career stages, to identify the most significant recent advances and discuss paths to addressing as yet unanswered questions. Keystone Symposia provides an internationally recognized platform as well as resources to ensure the success of this meeting, and the organizers are well-recognized leaders in the field of evolutionary developmental biology. To our knowledge, this will be the first discussion-focused meeting to bring researchers using population genetics and experimental evolution together with those focused primarily on macroevolutionary processes. We anticipate that this broader scope will foster novel ideas for individuals in both groups. We anticipate the following educational benefits: acquaint trainees and investigators new to field with the state-of-the-art; critical scientific feedback; and career development for trainees and new investigators, including opportunities both to see successful scientists presenting cutting-edge science and to network with prospective mentors and others who might contribute to their scientific and professional development.